CAREER: Design Principles for Cryptographic Hash Functions: Foundations, Primitives, and Transforms

Cryptographic hash functions are ubiquitous in modern cryptography.
They are an integral part of digital signature and public-key
encryption schemes, access control mechanisms, digital time-stamping
routines, message authentication codes, and file synchronization
utilities. They are implemented in point-of-sale terminals, ATM
machines, operating systems, web browsers, routers, and mobile phones,
to name just a few. Yet the design and analysis of hash functions has
received relatively little attention from the cryptographic community,
a shortcoming underscored by recent high-profile attacks on the
often-used MD5 and SHA-1 hash functions.

This work aims to advance our understanding of cryptographic hash
functions in theory and practice by developing three complementary
themes. First, it further solidifies the formal foundations of
hashing. This means establishing new and meaningful notions of what
means for a hash function to be "good". Additionally it explores the
powers and limitations of new analytic frameworks (for example,
indifferentiability and human-ignorance), and search for a sharper
view of design heuristics (in particular the random-oracle and
ideal-cipher models.) Second, it investigates the design of "small"
hash functions, called compression functions, with small domains and
fixed ranges. Designs based on permutations, blockciphers and
tweakable blockciphers are especially interesting. Third, it develops
methods for transforming compression functions into "big" hash
functions with flexible domains and ranges; traditionally, the range
of a hash function is a string of a single fixed length. Also
targetted is the problem of combining the outputs of multiple
primitives for the purpose of security preservation in the presence of
faults.